Acquisition of an Origin 2000 for Seismic Research

9724555 Stoffa This award to University of Texas at Austin provides funds for acquisition of new computer and software development resources for seismic reflection processing and analysis at the Institute for Geophysics. This award from the Major Research Instrumentation Program is expected to provide substantial improvements in analytical capabilities for 3D seismic reflection research projects and modeling, and will provide state-of-the-art capabilities for training graduate and undergraduate students in geophysics. Substantial cost-share (37%) is offered by the Institute towards this project. ***